Research Experiences for Undergraduates in Chemistry at Michigan State University

Dr. Michael W. Rathke and other members of the Chemistry Department of Michigan State University are being supported to continue a Research Experiences for Undergraduates (REU) site in chemistry. For the period 1995-1997, sixteen undergraduate students will spend ten weeks each summer actively engaged in a variety of research projects. The focus of the research experience is synthesis, modeling, and characterization of materials. In addition, students participate in weekly seminars on materials and materials characterization, brown bag lunches on career options, and field trips to industry. Ten students are supported by the NSF award, with an additional six students supported by the University as a feature of its cost-sharing.